The Study of Coronal Plasma Turbulence with Radioastro- nomical Interferometers

This project will study plasma turbulance in the solar corona and solar wind using radio propagation techniques. The sources of the radio waves are extragalactic radio sources which emit partially linearly polarized radiation over a wide frequency range. The sources are observed with standard radioastronomical instruments such as the Very Large Array (VLA) and Very Long Baseline Array (VLBA). When these sources are viewed through the turbulent plasma medium of the corona and solar wind, various distortion or "blurring" effects may be observed. From measurements of these effects, information about the intensity, spatial power spectrum, and physical nature of the turbulence can be deduced. During the proposed grant period information on coronal turbulence will be obtained from two types of observation. The first is a measurement of angular broadening or "blurring" of a radio source viewed through a turbulent medium. These observations will be carried out with the VLA and VLBA. The second type of observation consists of measurement of Faraday Rotation of the plane of polarization of alinearly polarized radio source. These observations will be made with the VLA and will provide information on variations in the magnetic field in the corona as well as density variations. Finally, theoretical work will be made which relates radioastronomical observables to properties of coronal plasma waves. #